Novel Ideas for Physics Beyond the Standard Model

Research in theoretical high-energy physics will focus on the exploration of novel ideas for physics beyond the Standard Model of the elementary particles particularly those new ideas that arise from the interplay between string theory and traditional particle physics. In recent years, this interplay has had a dramatic effect in reshaping our understanding of the theoretical (and indeed the experimental) possibilities for physics beyond the Standard Model. Such new ideas span a very broad range of energies, and include the possibility of large extra spatial dimensions.
The exploration of the new ideas is important to the expansion of our intellectual horizons, and to the planning of future experiments.